BIOCOMPLEXITY--INCUBATION ACTIVITY: Evolutionary and Ecological Functional Genomics: Jumpstarting a Multidisciplinary Field

The major issues to be addressed by the life scientists of the 21st Century will
require both the admixture of life science disciplines that have traditionally been separate
and the inclusion of disciplines that have traditionally fallen outside the life sciences.
Achieving these goals is largely a matter of social engineering: getting isolated scientists
to interact with one another, shifting the training of pre-and post-doctoral students from
an oligodisciplinary to a multidisciplinary mode,instituting mechanisms for the sharing
of scientific resources, forming interactive scientific communities around major topics or
problems,and so on. For some key communities, this social engineering is already well
underway,but for others it is not. For this reason we propose a series of 'incubation
activities' for a potential community we will name 'evolutionary and ecological functional
genomics'(EEFG). The proposed incubation activities have two main goals:
1. Physical coalescence of this potential community
2. Strategic planning by this community,which will identify its scientific,
programmatic, and educational goals; and formulate workable structures for achieving
ongoing interaction and attaining these goals.
The two goals of the incubation activities would be achieved first by a
planning/organizational meeting to be held at the National Science Foundation, and then
by a series of outreach meetings that would be embedded in the annual meetings of
existing scientific societies on an international scale.